Hydrolysable Zwitterionic-Based Biomaterials for Effective Gene Delivery

This award by the Biomaterials program in the Division of Materials Research to University of Washington is to develop a completely novel, stand-alone gene delivery platform based on hydrolysable cationic precursors to zwitterionic poly(carboxybetaine) (pCB) polymers. This cationic pCB ester is able to condense negatively charged plasmid DNA into small polymer-DNA complexes. Upon the hydrolysis of cationic pCB ester into zwitterionic pCB, negatively charged DNA is effectively released from polymer-DNA complexes. The resulting zwitterionic pCB is nontoxic. This platform combines all of the features, including effective packaging/ unpackaging, specific targeting, and low toxicity/biocompatibility that are necessary in a gene delivery vehicle in a single biocompatible material. The outcome of this work is a new approach to effectively address two critical issues in gene delivery, i.e., efficacy and low toxicity. Graduate and undergraduate students will be involved in this project, particularly those from underrepresented groups. They will be trained in cutting-edge research integrating polymer and biological sciences. In addition, the PI's group will actively host high school students or teachers for summer research and international exchange students.

A key limitation in the development of human gene therapy is the lack of a safe and efficient gene delivery system. Synthetic gene-delivery agents generally do not possess the required efficacy. Toxicity is also of great concern. Most of the earlier approaches to address these challenges often lead to complex multi-material systems. The objective of this work is to develop a completely novel, stand-alone gene delivery platform based on hydrolysable cationic precursors to zwitterionic poly(carboxybetaine) polymers. It is expected that this integrated platform is capable of achieving high gene transfection efficiency, high blood stability, targeted delivery, and low toxicity. It will open up a new research direction in the gene delivery development. This project will provide graduate and undergraduate students, particularly those from underrepresented groups, with research opportunities in this emerging research field. The PI's group will also actively host high school students and teachers for summer research and international exchange students.